Turkish-English Language Acquisition

This longitudinal study investigates the simultaneous acquisition of English and Turkish by a child between the ages of 1 year, 8 months and 4 years, six months. Comparisons will be made with the monolingual acquisition of each of these languages as well as the successive acquisition of English and Turkish, followed by the loss of Turkish between the ages of 2 years, six months and 3 years, 3 months in a child previously studied. The project is of special interest among case studies in bilingual acquisition, because the two languages involved are typologically different. It also provides one of the few comparisons of simultaneous and successive bilingual acquisition using the same pair of languages. Findings will be relevant to theories of language acquisition and socialization, bilingualism, and relations between language and cognition in development.